Gravitational Radiation from Black Holes

Research in gravitational physics will simulate the production of
gravity waves by collisions between black holes. Water, sound
and electromagnetic waves are common examples of waves occurring in nature. A
revolutionary prediction of general relativity, Einstein's reformulation of
Newton's gravitational theory, is that accelerated masses produce gravity
waves analogous to the way electric charges produce electromagnetic waves.
Gravity waves have already been detected indirectly by their effect on
binary pulsars orbits. A Laser Interferometric Gravity Wave Observatory (LIGO)
sensitive enough to detect the waves directly is now under construction and
will open up a new form of astronomy. The knowledge of the shape of the wave
produced in a black hole collision is crucial to infer the collision process
from the LIGO signal.